Minority Student Support

This award is made to the Chairperson, Department of Earth Sciences, Dartmouth College, Hanover, N.H. 03755 to support the graduate work leading to a Ph.D. degree of Jerry B. Coleman. The funds are to be managed by the P.I. and NSF intends to support the student for up to three years, provided the Chairman acknowledges satisfactory progress toward a degree in annual reports to NSF.